SBIR Phase I: Commercialization of Next Generation SOFC's

This Small Business Innovation Research Phase I project aims to demonstrate the enhanced electrochemical performance and oxidation-reduction stability of a novel planar solid oxide fuel cell component. This research program will optimize the cell architecture, composition and geometry to assure cell stability during both thermal and oxidation-reduction cycling. Furthermore, the impact of thermal gradients on cell integrity and performance will be will be evaluated as a means of identifying and improving cell characteristics.

Successful completion of this project will accelerate commercialization of SOFC systems for many applications. Benefit to the U.S. will be devices with improved energy efficiency and lower greenhouse gas and pollution emissions, as well as the potential for many high technology manufacturing jobs.